Biocultural Dimensions of Chronic Pain: A Puerto Rican Study

This project supports a team of cultural anthropologists (two based on the mainland US and one in Puerto Rico) studying the effect of cultural background on people's responses to pain. The investigators will collect qualitative information through intensive interviews and quantitative information through questionnaires with 100 native Puerto Rican patients suffering chronic pain, and compare the results with those from a prior study of Anglo Americans and U.S. mainland Hispanics (mainly of Puerto Rican descent). The aim of the comparison is to test the hypothesis that socialization within cultural groups influences attitudes and attention to pain which then affects the psycho- physiological processes of pain perception. The study will be attentive to factors influences intra-cultural variation in pain response also. This study is important because it will contribute to our knowledge of the ways cultural orientation shapes human's ability to withstand suffering. At a time when chronic back pain seems to be common, understanding of this sort can clearly help society cope with the affliction. One of the researchers is handicapped (with chronic pain) and this support involves special aids to handicapped researchers.